DISSERTATION RESEARCH: Proximate and ultimate benefits of group living in Belding's ground squirrels

Animals can benefit from living in social groups for many reasons. For example, individuals living in a group can share the burden of finding food resources, watching for predators and caring for offspring. However, we know very little about the physiological mechanisms that contribute to social advantages. This project will address this deficiency by evaluating the relationships among stress hormones, immune function, behavior, survival and kinship in Belding’s ground squirrels. Specifically, this project will test how living near kin or non-kin affects stress hormones and immune function as well as how increased stress hormones change predation risk. Captive experiments will be conducted with wild-caught squirrels and will measure genetic relatedness, hormone levels and immune function with laboratory assays. It is predicted that individuals living with kin will exhibit reduced stress hormones, increased immune function and will perceive reduced predation risk. It is also predicted that individuals with experimentally increased stress hormone levels will perceive greater predation risk. This research will have broader impacts because it will improve our understanding of how physiology shapes social benefits. This is relevant to all social vertebrates, including humans, because they all share the hypothalamic pituitary adrenal axis that regulates stress responses. In addition, this research program has a strong history of outreach. Two undergraduates and two field assistants will be trained in behavioral, ecological and laboratory techniques. In addition, the results of this research will be used to teach urban Chicago youth about behavioral research and the scientific method.